Modeling of nonbonded interactions in graphene and carbon nanotubes

Golovaty
DMS-1009849

Possible applications of graphene -- a sheet of bonded
carbon atoms -- entail understanding and controlling the coupling
between the mechanical deformation and electronic structure and
transport properties. This coupling is not fully understood, in
part because the basic mechanical response of interacting
graphene sheets is not yet adequately described. Important for
predicting this response are the nonlocal van der Waals forces
between layers of graphene and between graphene and a supporting
substrate. The aim of the project is to develop and investigate
continuum models of graphene structures that incorporate van der
Waals forces in a rigorous way, accounting for long-range
ordering of atoms. Derived via a multiscale analysis, the
continuum models are formulated within nonlinear rod and shell
theories. Equilibrium configurations of various graphene
structures -- involving multiple layers and different substrates
-- under external loads are analyzed using the tools of
bifurcation theory. Also, the thermal properties of nanotube
composites are investigated within the framework of a network
model taking into account the influence of van der Waals forces.

Interest in macromolecules composed of carbon atoms has
stimulated a great deal of recent research in materials science
and physics. Much of this work has focused on carbon nanotubes
and, more recently, on the basic structural element of a nanotube
-- graphene. Graphene is a single-atom-thick sheet of bonded
carbon atoms. Despite many decades of effort, only within the
last six years have scientists discovered methods for producing
isolated individual graphene sheets. This discovery has
stimulated a flurry of experimental and theoretical work on the
exceptional mechanical, thermal, and electronic properties of
graphene. Exploiting these properties could lead to significant
advances in many technologies and yield, for example, more
efficient solar cells, faster microprocessors, or lighter,
stronger composite materials. The principal goal of this project
is to employ mathematical modeling to gain a better fundamental
understanding of how atomic-scale forces between layers of a
carbon nanostructure influence its mechanical and thermal
characteristics. The project investigators are developing and
analyzing comprehensive multiscale models of interacting graphene
layers by utilizing ideas at the forefront of existing theories
as well as by introducing new mathematical tools.